Support for U. S. State Department Science Advisor

The Department of State requires certain technical information, policy analysis, and assistance in developing proposal and options, to support its efforts to enhance its capabilities in international science, technology, and health affairs. Through this interagency agreement, NSF has agreed to provide funding for an interim Science Advisory.